Effective Management of Science and the Development and Transfer of Technology, Joint U.S.-Bangladesh Symposium, Dhaka, Bangladesh, March 21-24, 1989

Description: This project supports participation by six U.S. Scientists in a joint symposium: "Effective Management of Science and the Development and Transfer of Technology" which is organized by the American Association for the Advancement of Science (AAAS) and the Bangladesh Association for the Advancement of Science (BAAS) and is scheduled for March 21-24, 1989 in Dhaka, Bangladesh. Objectives of the symposium include: identification and characterization of the scientific and technical capabilities of Bangladesh; review and identification of needed changes in the management of science and technology in that country; identification of the science and technology needs of the industrial and agricultural sectors and ways to incorporate the capabilities in universities and other research institutions in the development of technology. The symposium agenda will include: curricula in universities and relationship to needs in industry; development of an adequate infrastructure in science and engineering; policies to enhance interaction with international academic and research organizations; intellectual property issues; and support of R&D by domestic enterprises and multinational concerns. The Bangladesh coordinator is Dr. M. Shamsul Haq, President of BAAS. Scope: The project involves a prestigious U.S. organization, the AAAS, and its Bangladesh counterpart. Previous joint activities, including a 1985 meeting, have resulted in concrete steps to focus the collaboration between these two organizations on strengthening the infrastructure of science and Technology in Bangladesh. This project is likely to lead to further steps of collaberation by BAAS with the AAAS and with other international science and Technol ogy organi- zations, and in turn to improving the effectiveness of the science and technology infrastructure in Bangladesh.